NSF East Asia and Pacific Summer Institute for FY 2012 in Singapore

This action funds Anastasiya N. Protasov (Romanovskaya) of Texas A&M University to conduct a research project, entitled "Reducing computational costs of a model in porous media using a hierarchical approach," during the summer of 2012 at Nanyang Technological University in Singapore. The host scientist is Dr. Viet Ha Hoang, assistant professor in the Division of Mathematical Sciences.

The Intellectual Merits of the research project lies in its special approach to solve only particular problems instead of solving the entire high-dimensional system. The research includes the development of robust and inexpensive hierarchical local-global reduced-order models and application of these techniques to single-phase compressible flows that arise in real world problems.

The Broader Impacts of an EAPSI fellowship include providing the Fellow a first-hand research experience outside the U.S.; an introduction to the science, science policy, and scientific infrastructure of the respective location; and an orientation to the society, culture and language. These activities meet the NSF goal to educate for international collaborations early in the career of its scientists, engineers, and educators, thus ensuring a globally aware U.S. scientific workforce.